Spatial and Temporal Dynamics of Simple Living Systems

*** 9723972 Adami A new multipurpose "artificial life" software system will be developed, to model several aspects of evolution in simple systems in "computational evolutionary biology". This will include studies of molecular evolution near the error threshold, and the "directed mutation" hypothesis. The results of the computer studies can be compared with the evolutionary processes observed in simple biological systems involving strains of E.Coli. ***